SCI/NMI/SGER: Towards Cognitive Grids: Knowledge-Rich Grid Services for Autonomous Workflow Refinement and Robust Execution

This SGER proposal describes research on grid workflow refinement and execution for abstract workflows in two areas: preplanning and advance resource reservation; and context-aware dynamic planning and failure repair. Drawing from AI planning techniques, resource reasoning, and languages for expressive knowledge representation, techniques for workflow refinement will be developed. Mechanisms for monitoring and failure-detection based on models for expressive representation of the environments will also be developed. Resulting service implementations will build upon the existing Pegasus workflow mapping system and disseminated through Pegasus.